Mathematical Sciences: Midwest Conference on Partial Differential Equations

This award provides support for a continuing series of conference/workshops focusing on problems and advances in the theory of partial differential equations. The meetings are hosted by various midwestern institutions on a rotating basis. Two principal speakers are invited, often from outside the region. Six additional talks are also scheduled. These spring-fall meetings date back to 1977 and have admirably fulfilled their goals of bringing together researchers for intensive discussions twice each year. In addition, graduate students are urged to attend. Many researchers go to great lengths to see that these students have transportation and lodging. Attendance is now between 70 and 80 mathematicians. Many do not ask for support, keeping the total cost to an absolute minimum. The breadth of strength and interest in partial differential equations in the region is truly impressive. Areas ranging from numerical simulations of turbulence to abstract equations in several complex variables can be represented at any meeting. The activity has measurably contributed to the health of mathematics in the region.